Soil Nailing - Innovative Rehabilitation Technology for Widening and Repair of Bridge Retaining Structures

The proposed research program is expected to enhance the fundamental understanding of loading effects on the engineering behavior of composite soil-nailed systems. It will yield preliminary model scale data for the experimental evaluation of the design assumptions, and for the engineering assessment of the soil-nailed system performance. It is expected to significantly contribute to improve design practice and, thereby, to increase the confidence of engineers in the potential application of soil nailing as a cost effective engineering solution for rehabilitation and/or construction of bridge abutments, as well as for remediation and geotechnical construction projects in built congested urban environments.